Collaborative Research: Program Analysis Techniques to Support Dependable RTSJ Applications

As part of the joint NSF/NASA High-Dependability Computing and
Communication
Systems Research effort, this project is developing, adapting and
integrating a variety of program analysis techniques for the Real-time
Specification for Java (RTSJ). RTSJ is an emerging language extension
for Java that is designed for implementing concurrent time-critical
embedded software, for example, the control software on NASA's
robotic Mars rovers. This type of software is notoriously difficult to
test and debug, and the model-checking, light-weight static and dynamic
analysis techniques being developed as part of this project promise to
identify bugs before software is deployed to the field and to produce
systems that function more reliably.

A cornerstone of this project is the use of controlled experimentation
to judge the effectiveness of new analysis techniques. As part of this
effort, RTSJ programs and experimental frameworks will be developed that support
repeatable experimentation for determining analysis performance and the
precision of analysis results. Experiment findings will drive the refinement of
analysis techniques. Case studies using NASA testbed software will serve
to evaluate the scalability and applicability to NASA-relevant software
challenges.

If successful, this project promises to provide developers of next
generation real-time embedded software, both at NASA and throughout the embedded
systems domain, with a suite of powerful quality-assurance tools that
will allow them to more cost-effectively produce higher-quality systems.
Given the pace at which software is being embedded in our society's
infra-structure, this could have broad impacts on the degree to which
we can rely on such systems.